SGER- Impact of the Angora Fire on Colloidal Black Carbon in Lake Tahoe and Fallen Leaf Lake

ABSTRACT

The primary goal of the proposal is to collect and quantify black carbon colloids
(BC) in water samples from Lake Tahoe and Fallen Leaf Lake in the wake of the Lake
Tahoe basin Angora fire. The sampling program will collect near-shore, mid-lake and
outlet river samples from Fallen Leaf Lake and Lake Tahoe. In addition to sampling
conducted by the project, we will leverage pre-existing sampling programs such as the
UC-Davis Mid-Lake Tahoe Profile (MLTP), which collects depth profiles from the lake
every 30 days. A proposal will be submitted in December to the NSF Hydrologic
Sciences to interpret the data resulting from the SGER.
Scientific merit
Little is known regarding black carbon colloids, produced by incomplete
combustion, in aquatic systems. However these nano-particles are now believed to be
an important component of the global carbon cycle, the hydrologic cycle, global
warming, accelerated snow pack and glacier melt, fresh water and marine chemistry and
sediment geochemistry. Recent studies of BC in seawater and marine sediments
suggest that BC may have a very long residence time in the ocean and fresh water
bodies. These particles may also determine the partitioning of many toxic organic
compounds in aquatic ecosystems. To our knowledge there have been no studies of BC
colloids in a lake system following a major fire in its basin.
Objectives
. Collect and analyze BC in water samples from Lake Tahoe and Fallen Leaf Lake
over a two year period after the Angora Fire.
Broader impacts
The project represents a rare opportunity to study the impact of a fire on BC
colloids and determine how these colloids impact the aquatic environment. The results of
the project may have wide ranging impacts on the global Earth Science Community as
well as the Lake Tahoe community. For example, if the study can establish the
residence time of BC in the lake, we will be able to determine the impact of BC on the
lakes optical properties and chemistry over time. The results from the study may then be
applied to other lakes and rivers. The data will be used by Federal and State
policymakers and local planners to evaluate and implement environmental policy in the
Lake Tahoe area. The project will communicate the results to the Lake Tahoe
stakeholders and scientific community through journal publications and public meetings.